Equipment for Nondestructive Evaluation of Infrastructure

WPCM 2 B P Z Courier 10cpi #| x x 6 X @ 8 ; X @ HP LaserJet IIISi HPLSIIIP.PRS x @ , \ , IX @ #| x 2 Z B # X HP LaserJet IIISi HPLSIIIP.PRS x 6 X @ 8 ; , \ , IX @Courier 10cpi Courier 10cpi (Bold) ( ? x x x , x 6 X @ 8 ; X @ ? x x x , d x ` B ; X Canon -8 A1 CALB8A1.PRS A x @ X @ 2 K 9350862 # x @ 8 ; X @# X ` h p x (# % '0* , .81 3 5@8 : <H? A @ @ 1 @ Rix 1 1 - This project will equip a Nondestructive Evaluation of Infrastructure course to be offered to upper division civil engineering undergraduate students at Georgia Tech. The proposed course will introduce students to several nondestructive evaluation methods including (1) sonic and ultrasonic measurement of material properties, (2) defect and void detection, (3) acoustic emission monitoring, (4) optical generation and detection of ultrasound, (5) integrity t esting of foundations, (6) nondestructive pavement evaluation, and (7) ground penetrating radar applications. The requested equipment allows students to gain hands on experience with all of these NDE methods. This equipment includes ultrasonic generation, detection, and recording equipment for material characterization and defect detection; an acoustic emission system; a portable Fast Fourier Transform analyzer, instrumented hammer, and transducers for foundation integrity testing and pavement evaluation; and a high frequency transmitter and antenna for ground penetrating radar tests. The Georgia Department of Transportation is also supporting the proposed course by offering to demonstrate the use of its falling weight deflectometer for pavement evaluations.